Collaborative Research: Augmenting Self-Regulated Learning Through Human-AI Co-Regulation

Artificial intelligence (AI) is rapidly changing how students learn by offering tools that can estimate what a student knows and suggest what to study next. These tools can be helpful, but they often make decisions in ways that students cannot understand, which may leave students feeling less in control of their own learning. This project studies how structured interaction between learners and artificial intelligence (AI) systems can augment human cognitive regulation in authentic learning environments. Specifically, the project develops and studies a novel AI-powered learning support system that shows students its understanding of what they have and have not mastered, and allows them to inspect, reflect on, challenge, and revise that understanding. By making technology transparent and controllable, the project helps students remain active partners in their learning rather than passive recipients of automated support. The research team aims to work with instructors and students to iteratively design this system together and evaluate its impact on student-AI collaboration in supporting their learning.

This project aims to investigate how students and AI can co-regulate learning through a system that transparently presents its estimate of a student’s concept mastery as a visible representation that the student can reflect on and revise, aligning the student’s self-assessment with the system’s computational estimate. In Aim 1, the research team develops AI models that track students’ mastery of course concepts and generate personalized practice questions based on that evolving estimate. In Aim 2, researchers work with instructors and students to design system interfaces for this new AI system. Finally, Aim 3 is focused on implementation and evaluation of the system in authentic courses. The team analyzes AI-generated practice questions, system interaction records, and students’ performance on final exams towards producing generalizable knowledge about how cognitive control is distributed across humans and AI during learning. This project builds foundational knowledge about how transparent and controllable AI can support student agency, cognitive regulation, and learning.